PostDoctoral Research Fellowship

This award is made as part of the FY 2020 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Austin D. Conner is "New methods for the complexity of matrix multiplication: border apolarity and prescribed symmetry." The host institution for the fellowship is Harvard University and the sponsoring scientist is Joseph Harris.